Bridging Microstructural and Continuum Theories of DispersedSystems: New Insights from Advanced Computational Architectures

The purpose of this project is to develop a numerical technique for large-scale simulation of particle motion in suspension with negligible inertial effects. The governing Stokes equations are transformed into a set of Fredholm integral equations of second kind with double-layer densities on the surface of particles and on the boundary of the system. A fast iterative algorithm which makes optimal use of parallel computer architectures is proposed. The technique can be applied to dilute and concentrate suspension flow, non- spherical particles and irregularly bounding walls. It is expected that the research results will provide numerical tools for other researchers in the field of suspension flow, and will be used to interpret various experiments.